A Workshop on the Application of Invariance in Computer Vision; October 10-14, 1993; Azores

This award funds U.S. participation in a joint U.S.-European research planning workshop on invariants in computer vision. The meeting will be held in the Spring of 1993, at a site to be determined. Invariant theory has fueled substantial advances in object recognition, a central problem in computer vision. There are active research programs studying applications of invariant theory to computer vision, both tn the United States and in the European Community. The workshop will include research presentations and discussion sessions intended to identify important problems and opportunities for research progress. The meeting should facilitate coordination and communication among the research groups, and is expected to produce a publication in book form, containing both research and tutorial material on the topic.